Interface Engineering by Molecular Beam Epitaxy and ChemicalBeam Epitaxy

Heteroepitaxial interfaces composed of II-VI and III-V compounds will be fabricated under highly controlled conditions by utilizing modular molecular beam(MBE) and chemical beam(CBE) epitaxies in order to investigate the effects of valence mismatch on interfacial structures and physical properties. The interfacial atomic structures will be investigated primarily by utilizing high resolution transmission electron microscopy. Chemical and electronic properties of the interfaces will be sutdied by X-ray photoelectron spectroscopy(XPS) and optical spectroscopies. In- situ spectroscopic studies will be undertaken by integrating spectroscopy instrumenatation to the MBE system for investigation of local chemical bonding arrangements during real time formation of the heterovalent interfaces. %%% The technological goal of this research involves the development of new innovative optoelectronic and electronic devices consisting of II-VI/III-V heterojunctions, and the integration of newly developing light emitting devices of wide bandgap II-VI semiconductiors to existing III-V semiconductor devices as well as the improvement of the electrical contact to these devices. This research is expected to provide advances in materials understanding and in the synthesis and processing of novel material combinations which will be beneficial to the development of improved devices and integrated circuits used in computing, information processing, and telecommunications.